Inhibitory Roles of Layer I Neurons in Rat Barrel Cortex

The mammalian cerebral cortex is the vastly complex and enigmatic
neural structure responsible for cognitive abilities such as reasoning,
imagining and perceiving. A very useful model system for investigation of
the poorly understood cellular mechanisms underlying cortical function is
the rat somatosensory cortex, which contains discrete columns or "barrels"
of vertically-aligned, input-specific cells that process sensory
information from a single whisker. Barrel cortex has six layers (I-VI),
each comprised of cells with characteristic electrophysiological,
morphological and/or connectional properties. The functional integrity of
input-specific barrels is dependent upon a balance of inhibitory and
excitatory interactions of local inhibitory cells (interneurons) and
excitatory output cells (pyramidal cells) between and within layers. In
recent years, progress has been made in detailing the characteristics and
interactions of cells in layers II-VI of cerebral cortex, but little is
known of the properties of Layer I (LI) neurons and virtually nothing is
known of the role(s) they play in the microcircuitry of cortical columns.
This is a very significant gap, because LI is ubiquitous throughout the
cerebral cortex, and, unlike other cortical layers, contains a cellular
population comprised almost exclusively of inhibitory interneurons. LI
cells are strategically positioned to exert profound inhibitory influences
on pyramidal output cells, which receive many intra- and extracortical
inputs on their complex processes in LI. The goal of the proposed studies
is to gain an understanding of the role of LI neurons in functional columns
of cerebral cortex using the rat barrel cortex as a model system. The
overall hypothesis is that LI interneurons can be grouped into distinct
classes that play important roles in maintaining input-specific sensory
integration within and between barrels, through distinct inhibitory actions
on LII/III pyramidal cells and on other LI neurons. Physiological
recordings with intracellular biocytin filling of LI interneurons and
LII/III pyramidal cells in in vitro slices of rat barrel cortex will be
employed in experiments designed to test this hypothesis. Data from these
studies will yield vital information on the role of distinct classes of
interneurons in the cortical circuits responsible for integration of
sensory information.